FGLSAMP DRIVE 2020-2025

The Louis Stokes Alliances for Minority Participation (LSAMP) program assists universities and colleges in diversifying the science, technology, engineering and mathematics (STEM) workforce through their efforts at significantly increasing the numbers of students from historically underrepresented minority populations (African-Americans, Hispanic Americans, American Indians or Alaska Natives, Native Hawaiians or Other Pacific Islanders) to successfully complete high quality degree programs in STEM.

Florida A&M University (FAMU), lead institution for the Florida-Georgia Louis Stokes Alliance for Minority Participation (FGLSAMP) and historically black university (HBCU), consists of 14 two and four-year institutions in the region. The alliance consists of three Hispanic-serving institutions (HSIs), two emerging HSIs, and four HBCUs.

Over the next five years, the project, Developing Researchers through Innovative and Virtual Experiences (DRIVE), will continue to increase STEM undergraduate enrollment and degree production in addition to STEM broadening participation research and evaluation activities. The project will investigate non-cognitive attributes that contribute to persistence and degree completion status for populations historically underrepresented in STEM disciplines.

Co-funding of this project is being provided by the Improving Undergraduate STEM Education (IUSE) program in the NSF Division of Undergraduate Education (DUE) since important aspects of the project align with the overall goals of IUSE.